Mesozoic Intra-Arc Detachment Faulting in Western Nevada and Eastern California

; R o o t E n t r y F } C o m p O b j b W o r d D o c u m e n t 7 O b j e c t P o o l } } 4 @ # ! " $ % & ' ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e 7 j j j j j j j } 1 3 _ T 5 } j } j j j j ~ j j j j j 9526565 Schweickert The Jurassic volcanic arc has been shown to have a complex history and may have involved multiple episodes of extensional, contractional and strike-slip deformation. This project will attempt to reveal the geometry and style of Mesozoic interarc detachment faults and their relation to igneous activity and to preceding and ensuring contractional events. The time-space relationships of deformation and plutonism need to be resolved so that they can be related to plate boundary processes and to back-arc phenomena. ; Oh +' 0 S u m m a r y I n f o r m a t i o n ( $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT 9526709 Felicia Smith Felicia Smith @ @ @ @ F # Microsoft Word 6.0 2 ; ! ! ! ! K @ Normal a " A@ " D efault Paragraph Font j Felicia Smith$\\CLM12\EARTESHR\1995SEPT\GRUNOW.TXT Felicia Smith&\\CLM12\EARTESHR\1995SEPT\SCHWEICK.TXT @HP LaserJet IIID LPT3: hppcl5a HP LaserJet IIID 8D R HP LaserJet IIID 8D R 1 Times New Roman Symbol & Arial " h $ 5 9526709 Felicia Smith Felicia Smith ;